Oceanographic Instrumentation

The Scripps Institution of Oceanography of the University of California at San Diego has requested several sea-going data management systems and items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the four research vessels operated by the institution. A substantial part of the ships' operating schedules during 1991 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ships and of the institution to support research and engineering activities. The instrumentation includes: -Shipboard data management systems and components for real- time acquisition, management, analysis, and display of large environmental and geophysical data sets, -Mercury reversing thermometers for precision calibration of temperature data collected at sea, -Water purification system to provide reagent grade pure water for chemical analyses at sea, -Acoustic Doppler Current Profiler system for remote and continuous measurements of subsurface circulation features while the ship is underway, -12-kHz echosounder system for collecting data on seafloor bathymetry and sedimentary profiles, -Replacement Niskin bottles, thermometer racks, and acoustic altimeter for collecting discrete seawater samples at various depths in the water column, -Installation of a sea chest on R/V NEW HORIZON to accommodate acoustic Doppler current profiler, transducers, -Calibration equipment to assure the accuracy of measurements made at sea. The University of California is cost sharing in the acquisition of this equipment. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.